Enhanicing Research Opportunities for LSAMP Undergraduate Students: A Program for Native Americans and Pacific Islanders

The Organization for Tropical Studies (OTS), in collaboration with the All-Nations and the
Pacific Consortia of the Louis Stokes Alliances for Minority Participation (LSAMP), requests
funding to enhance the research skills and knowledge of Native American and Pacific Islander
undergraduate students in tropical biology. The proposed program will take place at the OTS
Las Cruces Biological Station in Costa Rica, an important research station in the Neotropics and
a major OTS center for hands-on training in field-oriented research.
The goal of the Native American and Pacific Islander program is to provide an intensive field
research experience for Native American and Pacific Islander undergraduate students. The
program is structured around a four-week stay in Costa Rica and Panama, during which the
participants will conduct research at OTS Las Cruces Biological Station, among other sites, and
visit three indigenous communities. The focus of the program is the development of the
students interest in biology and their capacity to conduct independent field research.
Intellectual Merit
The strength of the program lies in engaging Native American and Pacific Islander students in
pure and applied biological research, while introducing them to the biodiversity, cultural
diversity and community-based conservation issues of the tropics. Under the guidance of the
program staff and faculty mentors, the students will complete high quality research projects
designed to sharpen their technical skills and enrich their professional development. In addition,
by providing a broad range of scientific perspectives and research experiences, the students will
gain a sense of career awareness to clarify and direct their future academic life.
Project objectives
1. Introduce Native American and Pacific Islander students to the biodiversity of the tropics.
2. Help students analyze the role that Native Peoples in the Neotropics play in forest
conservation and, by extension, examine the role of conservation in their own communities.
3. Train students in the scientific method and in field research techniques.
4. Develop the students research abilities by conducting guided field research projects.
5. Encourage and facilitate the enrollment of these students in other field oriented biology
programs, such as REUs and OTS undergraduate and graduate programs.
6. Enhance the interest and commitment of the students in pursuing a science career by
providing a unique and inspiring research experience.
7. Provide the faculty mentors with tropical field research training to enhance their ability to
encourage and support students at their home institutions.
Broader Impacts
This program is designed to impact the academic and professional development of Native
American and Pacific Islanders students by providing a broad range of scientific and research
skills to improve their academic competitiveness at the undergraduate and graduate levels and to
encourage them to pursue careers in the environmental and biological sciences.